Optimal Policies in Infinite State Markov Decision Processes(Engineering)

The control of queueing (service) systems is increasingly important in the areas of communication systems, computer networks, and manufacturing. It is desired to determine control policies that are optimal and easy to implement. Underlying many queueing control problems is a mathematical structure known as a Markov decision process (MDP). Dr. Sennott will establish the existence of optimal policies in general state space MDPs, in partially observable MDPs, in MDPs with constraints, and in stochastic games. Lastly, she will study finite state approximations for infinite state MDPs. Examples illustrate the applicability of each topic to the control of queueing systems. The methods employed will be extensions of her developments (1989a, b, c). Interactive activities include teaching "Modeling with Stochastic Processes" and "Queueing Theory," and attending and speaking at departmental and graduate student seminars. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.